Observations in Support of Remote Sensing and Modeling of Arctic Sea Ice and Atmospheric Conditions

This proposal is part of an integrated scientific investigation to study the properties of the Arctic ocean, atmosphere, and sea-ice on a transect between Murmansk, USSR and Nome, Alaska. It will measure radiative fluxes and complementary meteorological data, ice type, melt pond coverage, ice concentration, and snow structure. These data would provide a unique data set that would resolve long standing disputes about the effects of melt pond cover and other summer season phenomena on radiative fluxes. These studies of the surface energy budget, atmospheric radiation and sea ice conditions will contribute to areas of research recognized as high priority within Arctic Ocean-Atmosphere-ice Interactions component of Arctic System Sciences (ARCSS).